Symposium: Science as a Way of Knowing: Biodiversity; to be held December 27-30, 1992 in Vancouver, B.C.

A symposium will be held as part of the annual meeting of the American Society of Zoologists in Vancouver, B.C., December 27- 30, 1992, on the topic of Biodiversity, and the proceedings to be published can be used to develop curricula in biodiversity for entry-level courses in colleges and universities. The Science As A Way Of Knowing (SAAWOK) series is targeted to those who teach first-year biology courses in colleges and universities and is sponsored by the Education Committee of ASZ. Goals of SAAWOK are to encourage teachers to: 1) emphasize the concepts of biology in entry-level courses, 2) relate how scientific procedures lead to a better understanding of the natural world and to the solution of many important human problems, and 3) present biology as a relevant human discipline. The specific aims of this SAAWOK symposium are: 1) presenting a symposium on a timely topic, Biodiversity, 2) providing hands-on curricular materials on Biodiversity including symposium proceedings, overheads and slides, and essays to the participating teachers, and 3) disseminating these materials on a worldwide basis. Participants will include ASZ registrants as well as college, university and high school teachers from the Northwest U.S. and Canada who will be invited to register at a reduced fee. Materials will be preprinted and distributed at the symposium and the symposium proceedings will be published in the American Zoologist.